ITR/IM(EHR): Course Capsules: Persistent Personalized Courseware

EIA-0113919
Klaus Sutner
Carnegie Mellon University

Title: ITR/IM(EHR) Course Capsules: Persistent, Personalized Courseware

This project will design and implement a system that will store, organize, index and make searchable course content, and preserve that content reliably over long periods of time. The specific plans include the systemic use of emerging XML standards to design a course model that supports both content and presentation markup. Course Capsules will not only archive the university generated course materials, but also the creative work of the students. Content markup will allow the Capsules to respond intelligently to requests by a user, and provide each student with a personalized depot of knowledge that remains available even after graduation. For the faculty, Capsules will form a trusted repository of course material and will encourage sharing and reuse. The archive in conjunction with extensive use tracking will provide a sound basis for ongoing review and improvement of curricula.